Honors Psychology Courses: A Workshop for High School Teachers

This four-week summer workshop sponsored by Texas A&M University will provide an intensive course in psychology for 32 teachers who will be offering the new AP psychology program. The course will cover all areas typically included in a college introductory psychology course, with particular emphasis on research methods, in neuropsychology, cognition, and sensation/perception. Additional coverage will include demonstrations, experiments, simulations, and other activities that can be used to illustrate the principles and phenomena of psychology; the development and utilization of a microcomputer laboratory as an adjunct to or as a significant part of the high school course; making the psychology of gender and ethnicity a significant part of the introductory course; the format and content of the AP exam; and information on planning in-service activities, including production of a model in-service program for honors psychology. Staff for the summer workshop consists of high school and college psychology teachers selected for their content expertise, their excellence in teaching, and their skills in in-service training. Matchinig funds from the schools and Texas A&M University are 14% of the NSF grant.